Anthropological Field Research on the Giant Lemurs and Associated Fauna of Northern Madagascar

The primary objective of this research is to discover and recover remains of giant extinct primates in Madagascar and to determine their dates of extinction and interaction with the first human colonizers of the island. The giant "subfossil" (recently extinct) lemurs represent an unusual group of primates of special interest due their large body size and extreme adaptations. The effect of the very late human arrival on the environment is also noteworthy not only for its specific impact on the primate fauna of Madagascar but also for its more general implications with respect to current environmental issues (e.g., the relationship between human modifications of the environment and associated extinction events).